UNIDATA: Plymouth State Meteorology Network

Funds are provided for the purchase of hardware and software to install a local area network among the computers (a PS/2-70, two PS/2-60's, a RISC 6000/320) that serve the Meteorology Program at Plymouth State College. Plymouth state is an active and innovative participant in the UNIDATA program and this award will enable this college to sustain and enhance their UNIDATA participation. In addition, the proposal seeks monies to network the computers serving the Meteorology Program to the PC cluster supporting the Natural Science Department at Plymouth State. Networking has essentially become a necessary part of the UNIDATA Program. The lack of a local area network has limited both the educational and research value of UNIDATA at Plymouth State even though UNIDATA terminals have been in place for over three years. As a result of being networked, the Meteorology Program can be enhanced significantly. A UNIDATA computer laboratory will be taught on the PC's in the microcomputer cluster. Current weather graphics and satellite images will be integrated directly into course work by displaying them in meteorology classrooms and lecture halls. The UNIDATA Campus Weather Display System will be installed to give campus personnel and students direct access to simple WXP and McIDAS graphics and forecasts. Finally, a network will provide an easy method of file transfer between the server (RISC/6000) and the PS/2 machines, especially when McIDAS is officially released under the AIX operating system.